REU Site: Research Experience in Design and Construction of Autonomous Robots and Machine Learning

This award provides funding to the University of Florida for a renewal of a three-year, REU Site in Design and Construction of Autonomous Robots and Machine Learning, under the direction of Dr. Antonio Arroyo. This thirteen-week summer program will involve twelve students annually in individual state of the art research projects in autonomous robots and machine learning. In addition, the participants will receive training in technical presentations and writing, give weekly semi-formal design reviews, bi-weekly progress reports throughout the summer, write a final research report, and learn about ethics in research through seminars and industry field trips.
.